Mathematical Sciences: Administration of Evaluation Process for NSF Math. Sci. Postdoctoral Res. Fellowships

This is a cooperative agreement between the National Science Foundation (NSF) and the American Mathematical Society for the purpose of providing an evaluation of the applicants for the NSF Mathematical Sciences Postdoctoral Research Fellowships. The American Mathematical Society will receive and organize the applications and convene a panel of distinguished mathematical scientists representing the American Mathematical Society, the Society for Industrial and Applied Mathematics, and the Institute of Mathematical Statistics. This panel will recommend a list of applicants to the Division of Mathematical Sciences of NSF for fellowship awards. The American Mathematical Society (AMS) is a nonprofit organization dedicated to the support of mathematical research and scholarship. It is critical to the AMS and to NSF that there be a continuing influx of mathematicians possessing the advanced training and talent needed to keep the profession vital. The Mathematical Sciences Postdoctoral Research Fellowship Program helps develop this talent and serves to focus attention on this need throughout the broad mathematical sciences community.